Faculty Advancement in Mathematics (FAIM)

Two two-week summer workshops are being held to acquaint undergraduate professors with new curricula ideas in the areas of geometry and statistics and their applications. Leaders in each field, both academics and practitioners, are interacting with fifty nationally drawn participants to enable them to understand new developments in these mathematical fields and to prepare applications-based modular materials suitable for use in their classrooms. Areas being discussed in geometry include tilings, combinatorial geometry and computational geometry. Statistics areas include data acquisition (especially statistically designed experiments), data analysis by graphical methods, and inference procedures for many-variable data, including new procedures that require less restrictive assumptions than traditional methods. A formal follow-up session will be held at the national joint AMS/MAA meetings in January, where participants may discuss the aspect of the training on their campuses and the use of modular materials with their students.